A Neodymium-like Soft X-ray Laser

Experimental investigations are carried out directed to demonstrating that positive gain may be achieved in a uranium Nd- like soft x-ray laser. A successful demonstration could lead to realization of an x-ray laser at 70 A, which would be an important new tool in photobiology, x-ray crystallography, materials research, and x-ray laser assisted processing.